ITR: Collaborative Hardware-Software Adaptation for Multimedia Applications

Mobile systems primarily processing multimedia data are expected to become
a dominant computing platform for many application domains. The design of
such systems imposes several new challenges, as it must consider demanding,
dynamic, and multidimensional resource requirements and constraints, with
energy becoming a first-class resource. At the same time, the ability of
multimedia applications to trade off output quality for system resources
and the difference between their peak and average demands offers a huge
opportunity for optimization.

A promising approach to meet the challenges of mobile multimedia systems,
therefore, is to design all system layers with an ability to adapt in
response to system or application changes. Further, to reap the full
benefits of these adaptations, all system layers must cooperate to reach a
system-wide globally-optimal configuration. This research seeks to develop
and demonstrate an integrated cross-layer adaptive system where hardware
and all software layers cooperatively adapt to changing system resources
and application demands, seeking to maximize user satisfaction while
meeting resource constraints of energy, time, and bandwidth. This work is
expected to have a large impact because it will expose sources of
substantial performance improvement not available before, for a platform of
increasing importance to many application domains.